A 90 MHz Nuclear Magnetic Resonance Spectrometer for Undergraduate Chemistry Experimentation

Nuclear magnetic resonance spectroscopy is a technique at the forefront of chemistry, biochemistry, molecular biology, and medicine. This project will provide students at Rider College with a 90-MHz NMR for experiments in five major laboratory courses and for undergraduate research projects. Students majoring in chemistry, biochemistry, and biology will use the instrument, beginning in the sophomore year. Experiments integrated into the chemistry curriculum include investigations of strained polycyclic systems using carbon-13 NMR, application of NMR spectroscopy to studies of reaction kinetics, and structure determination of organometallic compounds.